Optical Spectroscopy of Quantum-Layered Semiconductors in High Magnetic Field

The recent fabrication of high-quality semiconductor heterostructures has led to novel and remarkable physics discovered in two-dimensional electron gas systems. Magneto- transport experiments have shown that resistivity anomalies occur when the electrons have fractional values for Landau level filling. Subsequent theoretical studies revealed that the fractional quantum Hall effect is a manifestation of a new cooperative many-body electron fluid. although most of the experiments use electrical transport, our recent optical investigations will lead to a better understanding of the condensed electron state and possibly to new electron-electron interactions. This work will be an optical study of the two- dimensional electron system in GaAs quantum wells to temperatures as low as .05K and dc magnetic fields to 30 tesla. Spectroscopic techniques involve bandgap emission, adsorption and reflectivity, and inelastic light scattering. New fiber-optic systems will be implemented for light scattering experiments at these extrema of temperature and magnetic field.